Mathematical Sciences: Modeling, Control and Stabilization of Flexible Structures involving Thin Shells

The investigator proposes researching into the mechanical principles involved in modeling classes of dynamic shells with the aim of applying methods of control and stability in dynamical systems.